Isoperimetric Inequalities in Analysis and Geometry

ABSTRACT DMS - 0204650.

We plan to study isoperimetric inequalities for Dirichlet eigenvalues of
biharmonic operator in dimensions greater than 3, for the sums of reciprocals
Neumann eigenvalues, for the Willmore functional of a surface, isoperimetric
inequalities for Dirichlet Laplacian with Bonnesen type term.

By isoperimetric inequality we mean any inequality relating two or more domain
functionals (defined on the same domain) which is such that the equality sign
actually holds for some domain of the class under consideration (or in some
appropriate limiting sense). There are still some open fundamental questions in
this classical area.